National Dissemination of HPC Introductory Education through Multimedia

OCI 0634064
National Dissemination of HPC Introductory Education through Multimedia
PI: Thomas Sterling
Louisiana State University

Abstract

This proposal is designed to address the multi-disciplinary nature of High Performance Computing (HPC), its impact on various sciences, the graying of the HPC community with its inadequate number of young participants, educated in the relevant sub-disciplines, entering the field. As an interdisciplinary field, HPC engages talents in the broad areas of hardware architecture and design, system software, programming languages and tools, and parallel algorithms and computational techniques.

While many universities offer graduate courses in one or more of these areas, there is a dearth of collegiate level courses presenting an essential balanced treatment across all constituent areas and their critical interrelationships as they contribute in synergy to delivered performance. Only through such an interdisciplinary presentation can students experience the interplay and mutual sensitivities of each conceptual component with the others determining the factors that influence the overall resulting computational capability. Louisiana State University (LSU) is undertaking to develop such a course at the first year graduate level and as a senior level elective. The goal of this new course, using multimedia: "High Performance Computing Concepts, Methods, and Means" is to engender a new generation of computer and computational scientists expert in the development, operation, and application of high performance computing systems prepared to address this nation's future challenges demanding capability and expertise in HPC.